U. S.-Russian Collaborative Research: Codes for Multiple-Access Channels, Genetic Testing, Deletion-Insertion Correction, and Synchronization

Synchronization is an important component of reliable
data transmission. The problem of avoiding conflicts in asynchronous
multiple-access channels is investigated by utilizing methods from
algebraic and combinatorial coding theory.
Difference systems of sets are combinatorial structures
that are being used to facilitate the design of codes with good
synchronization properties. Comma-free codes are brought into play
in the organization of protocols for transmission over collision
channels in the absence of word synchronization.
Group testing techniques have numerous applications in fault
detection, error-control codes, and experimental designs.
In recent years, group testing has been studied in connection
with emerging new applications in multi-access communications,
the analysis of genetic information, chromosome mapping,
and DNA library screening. This project explores the link between
optimal 2-stage testing schemes and combinatorial designs that
minimize the expected number of tests, as well as algorithms
for the reconstruction of sequences by their subsequences or
super-sequences.
Packet loss is a common source of errors in Internet transmissions
that has renewed the interest in deletion-correcting codes.
The research concerning deletion and insertion correcting
codes will focus on finding bounds on the optimal size of a code
with prescribed error-correcting capacity, as well as
constructions of good 2-deletion-correcting codes that exceed
the Gilbert bound, and constructions of ordered Steiner
systems that yield optimal deletion-insertion correcting
codes.
The proposed research program presents an excellent
opportunity for introducing graduate and upper level undergraduate
students to the use of computers for learning and solving problems
that involve large scale algebraic and combinatorial operations
applied on data structures of formidable size, and utilizing
the computer as a tool for learning and solving real-world problems
that arise in various areas of science and engineering
of today's information age.